Applications of Interactive Integrated Assessment and Modeling to Design Sustainable Development Strategies for Arctic Watersheds

This project represents a collaboration of US and the Kola Science Center (Apatity, Russia) investigators for the purpose of examining the impacts of reduced environmental stress on the watershed ecology and the value of integrated modeling on consensus-building by decision-makers in the region. The investigators will conduct a workshop in Russia to examine the effect of decreased industrial and human activity on the ecological health or resilience of a watershed on the Kola Peninsula that has been severely affected by industrial use. The researchers will use modeling to assess economic and social development of the region and possible scenarios under changing global conditions, such as global warming. The workshop and an initial pilot project will be used to examine the value of the models for application to the integrated assessment of other watersheds on the Peninsula.